Improving the Undergraduate Chemistry Curriculum with a Gas Chromatograph-Mass Spectrometer

A computer-based gas chromatograph with a mass selector detector (GC/MS) is being used by the Chemistry Department at Evergreen State College for undergraduate instruction in organic chemistry, physical chemistry, environmental chemistry and faculty/student research. By coupling this instrumental unit with an existing laboratory computer network system, the advantages of computer interfaced analytical instrumentation in the sciences are also being demonstrated.